Nonlinear Modelling & Estimation of Harmonic Signals in Electric Power Systems

9322798 Olejniczak This project will investigate new harmonic signal models and state estimators for electric power quality analysis and assessment. Using state-variable techniques, harmonic signal models will be investigated to represent the stochastic variations in the amplitude, phase, and radian frequency of harmonic components in signals corrupted by noise. Nonlinear stochastic state estimators to identify the harmonic components of each measured signal for use in harmonic mitigation methodologies will be constructed. The new harmonic signal models in conjunction with their respective estimator may be applied to new flexible AC transmission systems (FACTS) controllers (e.g., static condenser) which have the capability of performing real-time harmonic filtering. Also, it is conjectured that the harmonic signal models created in this research project may be used in electric power system simulation software packages to more accurately represent field measurements and observed phenomena in the distribution system. ***